Structure and Local Stability in Astrophysical Gas Dynamics

Large-scale gasdynamical processes are extremely important to an understanding of the structure and evolution of the Galaxy. The development of instabilities in gas flows in the Galactic disk and halo may give rise to the intricate structures in the Galactic system that are seen directly in optical and radio images. Ultimately, structure on the smallest scales leads to star formation. By and large, what is seen is not well- understood. What is the origin of the gas seen at high Galactic latitude, and why does it seem to be in a very peculiar state of ionization? What is the fate of hot gas in the disk, and under what conditions can cool thermal condensations form in a dynamically active flow to give rise to the high velocity features which are observed? Why are spiral arms generally unkempt with spurs and branches often present, but with some galaxies showing an exquisite "grand design" structure while others appear completely chaotic? The theoretical research carried out with this grant addresses the questions posed above. The dynamical structure and the stability of astrophysical gas flows will be examined. The projects involve primarily studies of flows on a Galactic scale, but in some cases there are interesting and fruitful applications on larger scales.